SBIR Phase I: Aligned Carbon Nanotubes for Use as Atomic Force Microscope Tips

9861223
This Small Business Innovation Research Phase I project will demonstrate the feasibility of a new approach for fabricating aligned carbon nanotubes for use as Atomic Force Microscope (AFM) tips. The feasibility of manufacturing a single aligned carbon nanotube on an AFM cantilever will be demonstrated, in a process suitable for large-scale manufacturing. The proposed approach raises interrelated material-process compatibility challenges and design considerations, which have not previously been considered within the same context. The importance of this work to critical dimension metrology for wafer fabrication and use of AFMs for mask repair has led to endorsements by Texas Instruments and SEMATECH. Xidex plans to develop, manufacture and sell integrated carbon nanotube tips for in-line CD metrology and mask repair tools used within the semiconductor industry. These tips will also be used for lateral force microscopy, precision surface profiling, biological sampling and other nanoprobe research instrumentation.